Digital Government: FedStats Secure Collaborative Environment (FSCE)

EIA-0120256
Herbert Schorr
University of Southern California

SGER: Digital Government: Fedstats Secure Collaborative Environment

This grant will support preliminary explorations of the needs of statistical researchers and Federal statistical agencies to collaborate at a distance, using the Internet, over potentially confidential information. Issues such as security, privacy and authenticated data arise, particularly when some of the collaborators are connected from behind Federal agency firewalls Data analysis, visualization, Internet-based teleconferencing and other collaboration tools will be explored, as will the applicability of new Internet protocols.